Light-Induced Chloroplast Movements in Arabidopsis

Light-dependent chloroplast movements have been observed in many
plants including algae, moss, ferns, and angiosperms. These
chloroplast movements have been hypothesized to serve adaptive
functions such that movement of chloroplasts to the upper and lower
surfaces of cells in low light may improve light capture, whereas
chloroplast movement to the sides of cells may protect them from
photodamage. The experiments outlined in this proposal incorporate a
combination of genetic, molecular and physiological approaches to
understand the mechanism of chloroplast movements and to test the
hypothesized adaptive significance. The proposed work is expected to
lead to the identification of the photoreceptor system(s) for
light-induced chloroplast movement, elucidate the motility
mechanism(s) responsible for the movement, provide insights into the
nature of the signal transduction pathway, and allow us to determine
the functional significance of chloroplast movements during plant
growth and development. Understanding how light-induced chloroplast
movements impact photosynthetic potential could lead to agricultural
applications. In addition to the training of one postdoctoral fellow
and two graduate students during the award period, the participation
of several undergraduate students throughout this project is also
anticipated.